RIA: Development of a System Identification Methodology for Hazardous Waste Site

9408318 Jayawickrama The objective of this research is to apply the concept of System Identification Method (SID) to optimize the use of existing monitoring well data and to improve the reliability of the site information used in the characterization of hazardous waste sites. The SID method which has been successfully employed in many other branches of engineering has never been used in geotechnical and geo-environmental engineering applications. The method involves the study of the characteristics of an unknown system by observing how the system responds to a known stimulus or input.In the proposed research, the unknown system will be the contaminated site. Data describing the actual system behavior will be in the form of existing monitoring well data on contaminant propagation within the site. ***